Acquisition of a Dispersive Raman Spectrometer System for Basic Investigations on Network Glasses

9424556 Boolchand, Punit This award for a dispersive Raman spectrometer system will be used for basic investigations of network glasses. Constraint theory predicts the glass forming tendency of a network to be optimized near the stiffness (or rigidity percolation) threshold, when a number of constraints per atom exactly equals the degrees of freedom per atom. It is proposed to examine in detail, the physical nature of this stiffness threshold in chalcogenide glasses using complementary probes: Raman scattering and Lamb-Mossbauer factors. These experiments may lead to an understanding of the medium range order of these glasses, which is presently not understood. This instrument will be shared by investigators conducting fundamental materials research on technologically important glasses and semiconductor materials, and by engineers conducting research in the area of photonic materials and millimeter wave technology.